ITR: Noiseless Data Compression Based on Error Correcting Codes

Noiseless Data Compression is a key information technology used in innumerable
data storage and transmission applications ranging from computer operating systems
to modems to lossy compression standards. Although the state-of-the-art has
reached a certain level of maturity, with data compression algorithms that reach
the fundamental information theoretic limits with linear computational complexity,
they suffer from several shortcomings when used in packetized noisy channels.
For this reason, no payload data compression is currently implemented in third-generation
standards for high-speed wireless data transmission.

In this project, we explore an alternative avenue to the conventional approach
which seeks to design and analyze noiseless data compressors that are suitable for use
in packetized data transmission through noisy channels while retaining the favorable
properties of existing algorithms in terms of complexity and elimination of redundancy.
The new approach is based on the use of modern capacity-approaching
error-correcting encoding and decoding algorithms
(such as low density parity check codes and belief propagation, respectively)
in a novel way that capitalizes on the recent discovery of a reversible
transformation (block-sorting transform), which
previous research by the PI and his collaborators has shown to transfer
essentially all the memory redundancy present in ergodic
discrete information sources to redundancy in the individual symbol outcomes.
One of the most exciting applications of the new class of algorithms
is the problem of joint data compression/transmission. While Shannon's
separation principle establishes no loss in asymptotic performance
when compression and transmission are performed separately, it has long been
expected that, in the nonasymptotic regime, gains may accrue by joint design.
However, this promise has not yet been realized as existing schemes that take into
account the source statistics at the decoder can only cope with very simplistic models.